U.S. - Argentina Planning Visit: Structure and Function of Centromere Sequences in Neurospora

9820195
Selker

This award will support a planning visit by Dr. Eric U. Selker of the University of Oregon, to go to Cordoba, Argentina to meet with Dr. Alberto Luis Rosa at the University of Cordoba. During this planning visit, they intend to develop a collaborative research proposal to address the question of structure and function of centromere sequences in neurospora.